Synthetic Applications of Photocycloadditions

9319512 Crimmins The focus of this research is the study of the effects of substitution on the tethering chain in intramolecular enone-olefin photocycloadditions with regard to stereochemical control. The photoproducts will serve as precursors for the synthesis of a variety of natural product types including taxusin, magellaninone, serratinine and lubiminol. %%% With this renewal award, the Synthetic Organic Program is supporting the research of Dr. Michael T. Crimmins of the Department of Chemistry at the University of North Carolina, Chapel Hill. Professor Crimmins will focus his work on the use of photocycloadditons for the synthesis of a number of interesting natural products. ***